UCI/NSFNet Connection

The University of California at Irvine has several researchers who would benefit from access to supercomputing. They will be connected by a medium speed (56,000 baud per second) communication line to the San Diego Supercomputing Center, which connects to the National Science Foundation Network (NSFnet). Six federally-funded supercomputing centers can be accessed through NSFnet. This two-year grant covers one-time charges for line installation and interface boards in the first year, and line lease charges in both years.